SBIR Phase I: Knowledge Graph-powered Information Retrieval and Causal Inference

The broader/commercial impact of this Small Business Innovation Research (SBIR) Phase I project is as follows. The exponential growth of scientific literature poses two critical challenges: (1) missing important prior studies during research design can lead to resource and time wastage, incorrect conclusions, and missed discoveries, and (2) effectively utilizing the vast volume of scientific knowledge in raw text form has become increasingly difficult. This project aims to build disruptive, commercially valuable products that address these challenges, benefiting the pharmaceutical industry and academic research. In addition, the success of the project in developing advanced AI technologies will have a significant impact on the growth and development of the AI industry in Tallahassee, FL, and the broader southeast region of the United States.

This Small Business Innovation Research (SBIR) Phase I project aims to develop AI-powered, commercially viable applications enabled by a large-scale biomedical knowledge graph (KG) constructed recently using an award-winning natural language processing (NLP) pipeline. The KG has been further transformed into a causal KG by integrating causal relations and enhanced by incorporating data from 40 public databases and analysis results of some commonly used genomics datasets. To facilitate seamless access to the KG, the project team has developed a versatile query interface named iExplore. This interface enables highly accurate information retrieval and supports causal inference, providing users with valuable insights. In the current project, Insilicom LLC will further increase the coverage of the KG and build a novel literature alert system called iPulse. By combining the advancements in AI, the richness of the knowledge graph, and the utility of the query interface and literature alert system, this project will result in practical and commercially viable applications that will revolutionize the way biomedical knowledge is accessed, interpreted, and utilized.